Conference on Hyperplane Arrangements

9816607
Suciu
This award will provide partial support for speakers and others
at the Conference on Hyperplane Arrangements, held at Northeastern
University in Boston, Mass., June 12-15, 1999. The focus on hyperplane
arrangements includes their relations to a surprising number of other
areas of mathematics, particularly topology, algebra, algebraic geometry,
combinatorics, and analysis, with applications in coding theory, computer
science, spline functions, and physics, among others. The study of
arrangements is a relatively new branch of mathematics that has rapidly
attained an international following, and it is highly appropriate and
valuable for continued progress to have a meeting of this kind bring
together in one location a substantial number of those engaged. The
Boston conference has attracted participants from Japan, several countries
of Western Europe, and Israel, as well as the more numerous contingent
from the U.S. The results of the conference will be distributed in a
volume of abstracts prepared by the organizers, and an electronic version
of this volume will be made available on the web site devoted to the
conference [http://at.yorku.ca/cgi-bin/amca/cadi-01].
***